Postdoctoral Fellowship: MSPRF: Applications Between Algebraic Geometry and Analytic Number Theory

This award is made as part of the FY 2026 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Matthew Hasse-Liu is “Applications Between Algebraic Geometry and Analytic Number Theory”. The host institution for the fellowship is the Massachusetts Institute of Technology and the sponsoring scientist is Bjorn Poonen.